ACT/SGER: Extremely Sensitive Fluorescent Detection of Organophosphate Nerve Agents

Professor Neal Zondlo of the University of Delaware is developing a fluorescence-based device for the detection of trace quantities of organophosphate nerve agents. These agents, if present, will react with the acetylcholinesterase enzyme and detection will be made either directly or via fluorescent detection of cholinesterase activity. Since it should be possible to detect sublethal amounts, the device should be helpful in preventing terrorist attacks before they occur. Both graduate and undergraduate students will participate in the project.

This award is supported jointly by the NSF and the Intelligence Community. The Approaches to Combat Terrorism Program in the Directorate for Mathematics and Physical Sciences supports new concepts in basic research and workforce development with the potential to contribute to national security.